Workshop on Research Assessment for Experts from US and G-8 Countries

Abstract
OIA-0226068

The objectives of the workshop are to: brief G-8 representatives on the roles, methodologies, and impacts of research assessment activities in the United States; compare and contrast U.S. and other G-8 approaches to research assessment; develop best-practices in research assessment; identify major unresolved research and implementation issues; and contribute to the development of collaborative policy and research networks in research assessment activities among G-8 members.

Assuming these objectives are realized, all US agencies that conduct or support
research will benefit from the development and dissemination of best practices in
research assessment and the identification of major unresolved issues. The research
community will also benefit from the dissemination of information on comparative
methodologies for research assessment.